A Quantitative Physical Laboratory for Research and Education in Atmosphere and Ocean Sciences

0215735
Holland
This Major Research Instrumentation award to New York University's Courant Institute of Mathematical Sciences provides funds for acquisition of instrumentation for experimental research in geophysical fluid dynamics, especially focusing on quantitative aspects of atmosphere and ocean processes. Specific instruments to be acquired include a particle image velocimeter (PIV) and a planar laser induced fluorescence tool (PLIF) plus associated tanks, filters and plumbing fixtures, allowing accurate evaluation and measurement of 3-dimensional flow properties under controlled conditions. The instrumentation will be mounted for use on an existing geophysical fluid rotating table. The new instrumentation will provide an important experimental capability for testing and validating model and theory, as well as an important set of tools for laboratory studies by students in the Center for Atmosphere-Ocean Science. The project is supported by the Division of Ocean Sciences at NSF. New York University will provide cost-share support from non-federal funds for 30% of total project costs.
***